Institutional Infrastructure Minority Institutions Program: Establishment of an Institutional Infrastructure: Center for Advanced Technology and Education (CATE)

9313624 Adjouadi This award provides infrastructure support for the development of research and educational activities in the Department of Electrical and Computer Engineering, and in the School of Computer Science at Florida International University. The management of the program will be by the Center for Advanced Technology and Education (CATE), a state of the art research facility to integrate critical technology areas in computer and information science and engineering. Project will involve software engineering, computer vision, neural networks, artificial intelligence and robotics applications, and computer aided education. The unifying theme to the work will be concurrent processing. In the course of the projects both the graduate and undergraduate programs will be enhanced and revitalized. ***